Mathematical Sciences: Stability and Bifurcation in Two-Layer Flows

8902166 Renardy This proposal will study the stability and bifurcation in two-layer flows involving two immiscible fluids. Such flows have many applications in industry, such as the formation of bicomponent fibers, the transport of oil in pipelines, ink-jet printing and lubrication. It is well known that such flows can also exhibit phenomena which are totally unexpected based on our knowledge of one-fluid flows. Theoretically, many possibilities exist for the shape of the boundary separating the two fluids. Yet experiments show that some shapes are preferred over others, although the underlying selection mechanisms are not well understood. A chief objective of this proposal is to study, analytically and computationally, the stability of the various steady arrangements of two-layer flows, and the evolution of new arrangements from unstable ones.